Mathematical Sciences: Dynamical Systems Methods in the Study of One Dimensional Wave Motion

One-dimensional wave motion arises in many physical contexts such as the propagation of nerve impluses and waves through optical media. The waves that are physically relevant are the ones which are stable to perturbations in their profile. It is thus of fundamental importance to develop techniques for discriminating between stable and unstable waves. One of the main objectives of this work is to develop techniques that will apply to travelling waves of systems of reaction-diffusion equations that have some singular structure. The wave is then composed of pieces that satisfy reduced equations which can be analyzed. The idea is to build machinery for determining how the linearization of the full problem at the wave is built up from the spectrum of these reduced problems. This project contains also a study of a nonlinear Schrodinger equation that arises in nonlinear optics and plasma physics.